Research on Natural Disaster Mitigation - Legislation and Implementation

Three undergraduate students in Engineering will conduct on-site at NSF and for seven weeks, a project on the activities undertaken by the federal government in research on natural disasters. A report will be produced and a formal oral presentation will be made by October, 1987.